Aerosol Coagulation Research Using Photon Correlation Spectroscopy

Photon correlation spectroscopy is a dynamic light scattering technique which measures diffusive motion of particles. It has been applied quite successfully to particulate suspensions in liquids. The application of PCS to aerosol systems, however, is still in its infancy primarily because the particles being measured are following much faster and farther than particles in liquids. The principal investigators propose to develop further and apply PCS to size and shape characterization of aerosols, and to use these abilities to study the fundamental process of coagulation.